Kin Selection, Aggression, and Demography in Prairie Vole Populations: A Test of the Charnov-Finerty Hypothesis (Population Biology)

This research on the prairie vole, Microtus ochrogaster, has three objectives: 1) to test the Charnov.Finerty (1980) hypothesis, which proposed that differences in genetic relatedness at high versus low population densities drives vole population cycles: 2) to determine whether the proximate mechanism of this hypothesis is genetic relatedness per se, or familiarity (as suggested by Bekoff 1981); 3) to determine whether either degree of genetic relatedness or familiarity influences the mating system under field conditions. By manipulating matings and housing conditions in the laboratory, four populations of varying degrees of genetic relatedness and familiarity will be created: Kin-Familiar, Kin-Unfamiliar, Non Kin-Familiar, Non-Kin Unfamiliar. These populatins will be released into four field enclosures and live-trapped every two weeks. Wounding (as a measure of aggression), dispersal rates, reproductive condition, population numbers and spacing patterns will be monitored. DNA fingerprinting will be used to determine reproductive success and mating system in each enclosure. The interactive component consists of teaching a graduate seminar on women animal behaviorists, organizing a discussion group for women students and faculty, organizing a symposium on women and science, and presenting a department seminar. This project furthers VPW program objectives which are (1) to provide opportunities for women to advance their careers in engineering and in the disciplines of science supported by NSF and (2) to encourage women to pursue careers in science and engineering by providing greater visibility for women scientists and engineers employed in industry, government, and academic institutions. By encouraging the participation of women in science, it is a valuable investment in the Nation's future scientific vitality.